REG: Glass Integrated Optics Device Fabrication

9411794 Winick The Department of Electrical Engineering and Computer Science at the University of Michigan will purchase an electron beam gun and an intracavity frequency doubled argon ion laser to support research in engineering. The equipment will be used to fabricate novel integrated optical devices in glasses and crystals. This proposal is an integral part of our on-going research program in glass integrated optics. We anticipate that the new devices, developed as part of this effort, may eventually become important components in fiber-based optical communication and high density optical storage systems. As part of this program, we will develop and exploit new fabrication technologies for glass waveguide devices. Specifically, rare earth waveguide lasers will be fabricated, for the first time, in doped fused silica substrates using low energy electron-beam irradiation. Quasi-phase matched second harmonic generation in poled fused silica samples will also be demonstrated using electron beam technology. In a closely related effort, waveguide grating-based devices will be directly written into planar germano-silicate substrates using the frequency doubled argon ion laser. Extensions of this direct write method to include ion exchangeable glasses will be explored. The successful completion of this project should enhance the manufacturability of a large class of integrated optical components. ***